Bryophyte Flora of North America: Phase One, Volume One

The Bryophyte Flora of North America is a biotic survey by North America bryologists intended to provide an authoritative, re-evaluated summary, both as electronic Web-accessible databases and in hardcopy printed volumes, of the names, taxonomy, and geographic distributions of the nearly 1900 species of mosses, hornworts, and hepatics found north of Mexico through Canada and including Greenland. The Flora will result in a floristic digital library to be maintained in perpetuity and providing an environment that promotes and facilitates future research in biodiversity, floristics, ecology, conservation, taxonomy, and phylogenetics. Additional research products include a three-volume illustrated printed edition with distribution maps, online multiple access electronic keys, GIS-based floristic data, and other informational electronic databases. The work will be an essential tool for the identification of mosses, liverworts, and hornworts in its printed and updateable, long-term electronic form.